Chem-Bio Research Visualization and Learning Center

Chapman This award will allow the University of California at Los Angeles to renovate and modernize approximately 14,000 square feet of lab space into a computer modeling research facility in the chemical and biological sciences. The existing space does not conform to current fire, life safety, code, and access requirements. The renovation of the fourth floor of the south wing of Young Hall will make available a Chem-Bio Research Visualization and Learning Center dedicated to high-resolution computer graphic display instruction and research, as well as support spaces. This facility will be used by researchers, students, both undergraduate and graduates, and postdoctoral fellows. The vision for this center has been responsible for creating an environment that will foster interaction among various groups for innovative computer utilization. Novel methods are also employed by the new center arrangement to provide means of enhancing the chances of minority and women in the life sciences. This project will be cost-shared with the State of California and is an integral part of their science challenge designed to attract and retain students in science and to improve the attitudes of students towards science. ***